US-Japan Joint Seminar: Intelligent Distributed Autonomous Power Systems

9726539 VanLandingham This award supports the participation of American scientists and engineers in a U.S.-Japan seminar on Intelligent Distributed Autonomous Power Systems, to be held in Hakone, Japan from July 12-18, l998. The co-organizers are Professors Hugh VanLandingham of Virginia Polytechnic Institute and Osami Tsukamoto of Yokohama National University in Japan. The seminar will focus on: (a) distributed intelligence which includes sensing, forecasting, telecommunications, computers and control; (b) DC and dual-frequency AC bus technology; (c) demand side management, time of use pricing; (d) renewable energy, photovoltaics; (e) electric vehicles, battery and other storage devices; (f) load forecasting; (g) fuel cells, microturbines; (h) building energy efficiency; and environmental impact assessment. Power systems of the future will have different requirements due to customer choice and concerns about environmental degradation resulting from the generation and consumption of electricity. Their choice may be based on a demand for high quality delivered with a high degree of reliability, environmental concerns and costs. In order to study the feasibility and functioning of such distributed utilities of the future, the concept of Intelligent Distributed Autonomous Power System is proposed. It will be composed of several autonomous power systems that are loosely connected. These units will be responsible for their own load and supply of electricity, but can and will depend on outside sources for their normal operations. These systems will typically be small and will serve small towns or parts of large cities. The topics identified need to be explored to understand the set-up and performance of these Intelligent Systems. The exchange of ideas and data with Japanese experts in this field will enable U.S. participants to advance their own work, and will set the stage for future collaborative projects. Seminar organizers have made a special effor t to involve postdoctoral researchers. The proceedings of the meeting are expected to be made available on both universities' Web pages. ***